Unix Based Graphics Work Station Laboratory for Computer Science Students

This Project is to develop a graphics workstation laboratory. The equipment will be used in a sequence of four junior and senior level computer science courses to demonstrate modern methods in software engineering and computer graphics. Students will acquire expertise in such methods by using state-of-the-art instrumentation to implement software projects which illustrate theoretical results in those fields. The project focuses on the use of graphics tools as visual aids for the design and analysis of software and on the use of those tools in the development of graphics software itself. The equipment includes a color monitor and four workstations for a student laboratory and a file server and one workstation for a faculty laboratory. The server, a high-speed microprocessor with a disk drive, provides disk space and additional computing power to the workstations. Eight existing PCs would be connected to the server; four would be placed in the student laboratory and four in faculty offices. Both laboratories will be housed in a newly remodeled facility. Project implementation span a 2-year period with ample personnel available for equipment installation and course preparation.